PostDoctoral Research Fellowship

This award is made as part of the FY 2021 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Nima Hejazi is "Nonparametric Causal Inference in Complex Randomized and Observational Studies." The host institution for the fellowship is Weill Cornell School of Medical Sciences, and the sponsoring scientist is Ivan Diaz.